The BioQUEST Curriculum and Learning Tools Development Project

9354813 Jungck This project will enable post-secondary biology faculty to examine, critique, and change their biology curricula by providing the philosophy, tools, resources, support, and sharing network essential to such a process. This is being accomplished through a variety of mechanisms including the publication of a book and the hosting of three learning tools development workshops. The book will be a multi-authored, collaborative work on the BioQUEST 3P's philosophy with specific examples of use of materials in the BioQUEST Library, use of the 3P's in wet labs and field work and in situations where computers are not necessary, and discussions of the specific issues related to the development and implementation of open-ended, research and research-like experiences for students. The project will also support curricular reform and learning tools development through three summer workshops in three additional major areas of biology. Materials and information dissemination will occur using a variety of methods including the book, BioQUEST Notes, the BioQUESTLibrary, presentations and workshops at conferences, the Introducing BioQUEST Hypercard stacks, field testing of materials as part of the three-stage review process for publication in the BioQUESTLibrary, through other publications such as journal articles and labs in labbooks, electronic networks, the monthly consortium status reports, and responses to general inquiries via phone, e-mail, and U.S. mail.